Mathematical Sciences: Research in Modern Analysis Applicable to Fundamental Physical Theory

Professor Irving Segal has been an extraordinarily creative, broad, and influential mathematical scientist. His seminal contributions spread over five decades span a range of research from the theory of noncommutative integration, operator algebras, representation theory, commutative and noncommutative harmonic analysis, Lie groups, to quantum physics, and more recently extragalactic astronomy. Professor Segal's research is still of the highest calibre, and his fertile mind remains a font for both remarkably beautiful mathematics and foundational insights into the fundamental physical laws of the universe. The current proposal treats mathematical physics on a grand scale. Its aim is a comprehensive study of fundamental physical laws utilizing a range of sophisticated mathematical ideas drawn from functional and harmonic analysis, geometry, group representations, nonlinear partial differential equations, scattering theory, and more. Central to this work is the wave equation (and other mass zero equations) in four-dimensional space-time, the extension of solutions beyond Minkowski space, and the quantization of nonlinear wave equations. Applications to the Riemannian geometry of nonlinear parabolic partial differential equations go hand in hand with modelling of empirical elementary particle phenomena. This is an immense mathematical project of great significance to a vast expanse of natural science.